Dynamics and Radiation Field of Musical Instruments (Physics)

Physical measurement techniques and physics principles are applied to investigating and understanding the functioning of musical instruments. These investigations provide improved understanding of vibrating systems in general, sound production and control, wave propagation in irregular spaces, computer modeling, and non-linear mechanics.